CISE Research Resources: A Compute-Intensive Sensor-Based Environment for Research in Computer Vision and Artificial Intelligence

EIA-0130768
Sudeep Sarkar
University of South Florida

CISE Research Resources: A Compute-Intensive Sensor-Based Environment for Research in Computer Vision and Artificial Intelligence

Automated learning of grouping parameters for perceptual organization of complex images, modeling and reconstruction of elastic objects from image sequences, real-time matching of buyers and sellers for E-commerce, and learning models from extremely large databases, all require large data storage and a computing environment that supports exploring extremely large parameter spaces along with the ability to process huge quantities of data. A multiprocessor computing environment with substantial memory and disk storage is requested for high-performance computing associated with these four research projects in the general areas of computer vision and artificial intelligence. The compute server will increase the present capabilities by an order of magnitude.

In addition, image acquisition devices, including high-resolution color cameras, digital video cameras, stereo cameras, and laser range scanners are requested for gathering color, motion, and range data. The ability to acquire fast range images and motion sequences will enable the consideration of the problem of integrating motion and range into the perceptual organization process. Also, the ability to acquire fast and high-resolution range, with registered color, will facilitate development of physics-based non-rigid algorithms and models that incorporate true material properties, which have, heretofore, not been possible.